Information Processing in Motor Behavior

We live in a three-dimensional world, and we are aware of it. The perception of the visual space that surrounds us as three-dimensional is the product of complicated neurophysiological processes but the three-dimensionality of movements and forces generated by the arm is given, due to the multi-articulated construction of the skeleton and the multiple muscles attached to it. The question is then, how well does the 3-D visual map correspond to the 3-D motor map? How well can we match directions defined in 3-D visual space with directions of movements and forces operating in the same space? How well can we control our force vectors in 3-D space and in time, e.g. when we track a moving target? How successfully can we intercept that moving target? These and other questions are being studied quantitatively by Dr. Apostolos Georgopoulos and his team of scientists. Studies will be carried out using human arm movements. The visual instruction for the generation of 3-D force vectors will be presented in the form of a vivid stereoscopic image, and the 3-D force output of the arm will be monitored using a 3-D isometric manipulandum. The results will be analyzed using statistical techniques for 3-D data and an information-theoretical analysis. //